RUI: Solution of the Faddeev Equations in Coulombic Systems

A modified Faddeev formalism which accounts for long range Coulomb interactions is used to study a number of important three body problems. The numerical methods make heavy use of spline techniques in multiple dimensions to assure continuity of the wavefunction and its derivatives across natural boundaries. Applications to electrons, positrons and muonic systems are proposed.